Long and Medium-Term Research: Cell-Cycle Regulation of theJun Proteins

Long & Medium-Term Research: Cell-Cycle Regulation of the Jun Proteins This award is under the Long and Medium-Term Research at Foreign Centers of Excellence Program, which enables U.S. scientists and engineers to conduct three to twelve months of research abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Curt M. Pfarr to work with Dr. Moshe Yaniv of the Department of Biotechnology, Pasteur Institute, Paris, France. While the Jun Proteins are thought to function by binding to DNA and interacting with other nuclear factors, the molecular details of these interactions are still poorly understood. In addition, how the amount of each Jun varies under different growth conditions and where Jun is compartmentalized within the cell is presently unknown. Dr. Pfarr will use three experimental approaches to address these questions using cultured cells as a model. They are 1) localization of Jun proteins; 2) Inducible overexpression of Jun; and 3) affinity-probe analysis of cell extracts. By this concerted set of experiments he hopes to reveal novel aspects of Jun function and further clarify the complex control pathways of cell proliferation. The award recommendation provides funds to cover international travel, a stipend for twelve months and a dependents' allowance.